CAREER: The Logic of Grouping and Perceptual Organization

This project will investigate one of the most basic aspects of human
perceptual intelligence, the ability to organize the visual world.
Perceptual organization---the process whereby individual bits of the
visual image are aggregated into coherent, meaningful wholes---is a
fundamental process that is known to influence many other aspects of
visual processing. Yet no mathematically well-defined theory of it
exists. The key stumbling block is the pervasive but slippery notion
known as ``goodness of form,'' which has resisted attempts to define
it rigorously. The approach taken in this proposal is a modern,
mathematically-motivated version of the idea that for any visual
image, human observers see the simplest interpretation possible. In
most previous renditions of this idea, the term ``simplest'' is only
very vaguely or subjectively defined. The lack of concrete definitions
or algorithms in turn makes it impossible to determine empirically
whether the interpretation that human subjects see is, in fact, the
simplest. Minimal Model (MM) theory builds on ideas from modern
computational logic, with which which the term ``interpretation'' and
``simple'' can be given extremely precise definitions. Under these
definitions, it turns out that human judgments---for example, the way
line drawings are grouped and organized---correspond closely to the
formally minimal interpretation in a well-defined logical language.
This minimal interpretation is in a sense the least ``coincidental''
interpretation possible of a given scene; that is, the one that
explains the image best. An efficient algorithm exists for rapidly
computing the minimal interpretation. Moreover predictions derived
from this theory have already been used to answer some long-standing
empirical questions about human perceptual grouping. The experiments
to be conducted in this project investigate many of the most difficult
and important problems in perceptual organization: the perception of
occluded figures, the detection of figures amid complex and cluttered
scenes, the interpretation of three-dimensional structure, and the
representation and categorization of shape. For each of these visual
tasks, MM theory makes definite and concrete predictions what people
will see under various conditions, and about the limits of the visual
system's ability to recover the true structure of the visual world.
Educational activities in connection with this project include the
creation of new courses at the undergraduate and graduate levels. The
proposed undergraduate course (Topics in Cognitive Research) and
graduate course (Mathematical Methods in Cognitive Science) emphasize
an interdisciplinary approach to research in which both behavioral and
computational studies are emphasized.